Conference on Engineering Ethics in Engineering Education, June 12-13, 1990

This Conference on Ethics in Engineering Education, scheduled for June 1990, takes advantage of recent interest and advances in course development, research and professional society initiatives. The conference will gather 20 participants, representing engineering and engineering ethics educators, practicing engineers, and engineering societies. In discussions stimulated by prepared presentations as well as prior distribution of short reports of relevant work, participants will aim to identify and examine the core concepts and skills which students should develop from their exposure to engineering ethics. Conference participants would also aim to identify effective techniques and the expertise teachers need to communicate these concepts and skills. The conference will generate a report for all deans of engineering schools and directors of engineering programs. This project focuses on important and timely issues in ethics and undergraduate engineering education. The investigator and participants are highly qualified; the institutional sponsor is appropriate; the results are likely to be of wide interest and broadly disseminated. The project is strongly recommended for an award.